Project TEEM (Teacher Enhancement in Elementary Mathematics)

9355547 Patterson This project, supported at $1,931,632 is designed to provide mathematics content and leadership training for two teachers from each of the 87 elementary schools in the Cleveland Public Schools over a four-year period, for a total of 82 days of enhancement per teacher-leader. Principals from all buildings will receive information on math reform, staff preparation, and district requests for staff support at the building level. Each summer, the lead teachers will receive additional preparation in mathematics content, teaching of mathematics, and leadership skills. During each school year the lead teachers will meet monthly with project trainers. The project will provide annual seminars on awareness and training for principals. Parent representatives will receive awareness and training for principals. Parent representatives will receive awareness sessions. cost-sharing for the project is 9% the NSF award.